III: Small: Complex Event Analytics

Recent advances in sensor technologies and expansion of wired and
wireless communication protocols enable us to continuously collect
information about the physical world, resulting in a rich set of novel
services. The ability to infer relevant patterns from these event
streams in real-time and at various levels of abstractions to make
near instantaneous decisions is crucial for a wide range of mission
critical applications ranging from real-time crisis management to
security. This project designs, implements, and evaluates a novel
complex event processing methodology, henceforth called Complex Event
Analytics (CEA). CEA integrates the capabilities of pattern matching
from complex event processing with the power of multi-level analysis
from static OLAP engines to provide multi-dimensional sequential
pattern analysis over high-speed event streams. The CEA Model
combines CEP and OLAP techniques for efficient multi-dimensional event
pattern analysis at different abstraction levels. Based on
interrelationships in both concept and pattern refinement among
queries, sequence queries are composed into an integrated event
pattern hierarchy. OLAP like operations enable analysts to navigate
from one E-cuboid to another in this event analytics space. CEA
optimization strategies, including rewriting rules, physical
operators, and cost-based search algorithms, achieve scalable event
processing. CEA offers high-performance analytics by maximal shared
processing of event pattern queries. Experimental studies compare the
CEA solution to the state-of-the-art, including traditional stream
query systems and customized event engines. Intellectual merit lies
in the design, development and evaluation of a novel Complex Event
Analytics technology for real-time event stream analysis, -- a perfect
middle ground offering both the sophisticated power of pattern
matching found in modern event processing systems and the capability
of online analytic techniques at multiple levels of abstraction of
OLAP engines. CEA impacts society by facilitating a broad range of
stream-centric applications ranging from monitoring of hygiene
compliance to prevent the spread of infectuous diseases in medical
settings to business intelligence processing, and by integrating
project activities with education.

For further information see the project web site at the URL:
http://davis.wpi.edu/dsrg/PROJECTS/CEA